Electronic Structure of Carbohydrates

This project in the Theoretical and Computational Chemistry Program concerns the development of models to describe optical rotation by polysaccharide molecules, which are important structural components of carbohydrates found in all biological systems. The optical rotation is sensitive to chemical structure, configuration, and conformation and therefore provides information about these properties. In this work the optical rotation is related to vacuum ultraviolet circular dichroism bands, which in turn are described by geometry dependent interactions among bond-localized electronic transitions. The model has already been developed and tested on simple monsaccharides and now will be applied to disaccharides, including some that are the smallest conformational units of important polysaccharides. The work will give valuable theoretical information on molecular conformations to complement NMR and other experimental techniques currently in use.